A Program of Measurements of High Energy Electron Interactions with Nuclei at the Stanford Linear Accelerator Center

WPCm 2 B P Z Courier 10cpi #| x x @ 8 ; X @ BOND - HP Laserjet II HPLASERJ.PRS x @ , t 0# BmX @ 2 < H L Z #| x Courier 10cpi Helv 12pt (Rmn-8) (25inOne!) Helv 8pt (Rmn-8) (25inOne!) BOND - HP Laserjet II HPLASERJ.PRS x @ , t 0# BmX @ 2 9 = * X g z F ` " m @ ^4@@ l 4DDd 8@8dllllllllll<< h t 4d l | |t ||xHdHll4lthtl4tp((h( ptttDd8p` `d`lll dP d ddd@xxxxx@H d d l l l l l l h l l l l4(4(4(4( p t t t t p p p p|d l t t t|d t|t l l l h h h h t l l l l t t t t t t p p4 4 4(4 d hl(l(l(xxl( p p p p t t D D D|d|d|d|dt8t8t8 p p p p p p |dx`x`x` tl( p D|dt8|d|d t t p 8 > xl xNx xx dd@hXXlxxlHL l@ llx @ l x e x @d8x l @m@ xx edd l xxxxx x xxxxxxxxxx0 @p 4d x xxxxXX ` d e x x x x x x xx H p j xx xx x xx x xxx j xxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxx jjjjjjj H xH )xlxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxx 2 x x x , x @ 8 ; X @ Y * p C 4 , HdX p D 4 P $G X P d i H , ( , + hı H D 4 P G P BOND - HP L " m w ^((,dHp\ ,,@p$($@HHHHHHHHHH((pppH PX \TLd` DTHp`hThXTL\PxPTP0@0HH HPDPH(PL D xLLPP,@(L@`DD@HHHp @4p@$@@$HHHHHH,0<@ H H PHPHPHPHPH t`DTHTHTHTH `LhLhLhLhL\L\L\L\LTDPH\PhLhLTT\PTPPHPHPH D D D D\PTHTHTHTHdPdPdPdPdPdP`L`L D TDH H H HHH `L`L`L`LhLhL X,X, X,T@HHT@T@L(L(L(\L\L\L\L\L\Lx`TDP@P@P@ \PH `LX,T@L(TDTD\PhL\L $ h HH HNHHHH D@(H<<HXHHHHllH< HHPl( pHppH DDH ,@$ \ H ( ( HHxH@dpHppHHHHHddHpHHHHHHHHHH( HHhDH p` P T <H8H Tt HHxxdd d dddddd\ <<HlllllH``dd dd @ Hlhh ` TX H h PP l 0 t H H H H ddHH HH Hd hHdH HXtH`HX@hHH<44lP`L HhPPHlHhH`DHH dHhLHHhXl\HXHHH44HLLX<T ld HHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHHH444444444444HHHHHHHLLLLLLLLLLLLXXXXXXXXXXXXXXXXXXXX h`h4lhH4hD H, 2 k 9313839 Arnold Measurement of the neutron and proton spin response functions will be carried out at SLAC using the End Station A beam lines and spectrometers. A new 50 GeV beam capability for the end station will be developed, and spin response functions measured at higher momentum transfers to test model predictions for the momentum transfer dependence. Based on the higher energy beam, a proposal will be developed to study the flavor distribution of quarks using parity violation in deep inelastic scattering. Management and support services for other users of the SLAC End Station A facilities will be provided. ***